Pilot Project on Speech Recognition Using Layered Abduction and Explicit Representation of Speech and Linguistic Knowledge

This award in the NSF/DARPA Joint Initiative on Image Understanding and Speech Recognition is for a preliminary study of layered abduction as a control mechanism in speech perception. Layered abduction is a structured inference technique developed for problems in artificial intelligence and machine learning. The proposed system for speech recognition will include acoustic, articulatory, and phonological/prosodic strata, each forming and evaluating hypotheses at various levels of temporal resolution. A simple system will be built first to test the speech analysis techniques and develop efficient control algorithms. This project will unify the existing and planned work of several investigators at the Ohio State University, creating a framework for further advances in speech perception.